Industry/University Cooperative Research Activity: Two- Dimension Electron System on Hydrogen and Acoustic Properties of Helium-Three (Materials Research)

This project will investigate the two-dimensional electron systems in quantum regimes. This experimental and theoretical research will include a study of possible phase transitions at lower temperatures than previously used. The range of electron densities and interaction strengths between the electrons will be in a regime not accessible in current semiconductor systems or with previous metal-liquid helium-vacuum surfaces. Fundamental questions of the crystallization of the electron fluid and the conditions of the melting process will be determined.